Current Sheet Equilibria and Disruptions

The proposed research program will continue the investigators examination of the Earth's magnetotail. In particular they will be examining the conditions required for self consistent equilibria. in particular, the proposed research program will extend current 2-dimensional models to three dimensions. In addition, the research program will examine the importance of kinetic effects and the behavior and stability of thin current sheets.